CAREER: Higher Teichmuller Theory

Abstract

Award: DMS-0846408
Principal Investigator: Anna Wienhard

The goal of the proposed project is to further develop the
emerging field of higher Teichmueller theory. Higher Teichmueller
spaces are connected components of the variety of representations
of the fundamental group of a surface into semisimple Lie groups,
which share essential properties with Teichmueller
space. Classical Teichmueller space plays an important role in
various fields of mathematics due to its rich structure and the
fact that it is a smooth cover of the moduli space of Riemann
surfaces. For higher Teichmueller spaces many potentially
interesting structures are yet to be discovered and the relation
to the moduli space of Riemann surfaces still needs to be
clarified. The proposed research focusses on identifying the
geometric objects (similar to hyperbolic surfaces in the case of
classical Teichmueller space) which are parametrized by higher
Teichmueller spaces. These objects will then be used to define
algebraic, geometric and dynamical structures on higher
Teichmueller spaces, and we expect that they will help to
construct a natural map from higher Teichmueller spaces to
classical Teichmueller space.

Teichmueller space is the space of all geometric surfaces with a
fixed combinatorial type. Because it parametrizes all surfaces,
Teichmueller space is a fundamental mathematical object which
also plays an important role in theoretical physics. Every point
in Teichmueller space corresponds to a tiling of the Euclidean
plane, the two-dimensional sphere or in most cases the hyperbolic
plane by one polygon and its images under subsequent reflections
in the sides. (Nice pictures inspired by such tilings appear in
M.C. Escher's work.) The combinatorial type of the surface is
determined by the number of vertices of the polygon and the
gluing data, but the geometry of the surface depends on the
length of the sides and the angles at the vertices of the
polygon. Teichmueller space is the example of a moduli space of a
pattern (the tiling) with rich symmetries (the reflections in the
side of the polygon). Such moduli spaces can be efficiently
studied via the group generated by the symmetries of the
pattern. Higher Teichmueller spaces are moduli spaces of more
complicated patterns in higher dimensional spaces. However, the
symmetry group of these patterns is the same as the symmetry
group of the tilings associated to classical Teichmueller
space. Therefore one expects higher Teichmueller spaces to
parametrize geometric objects which are not surfaces themselves,
but closely related to surfaces. The proposed research focusses
on identifying these geometric objects and studying their finer
structure.

The project proposes various activities to involve graduate
students in research and teaching, as for instance a yearly
mathematical retreat for graduate students to study, explore and
present a mathematical topic in a group, and small workshops with
mini-courses which allow graduate students to get insight into
the working of modern research collaborations.